US-France Conference on Representation Theory and Harmonic Analysis of Reductive P-adic Groups, Marseilles, France June 1990

This award will support the participation of a group of US mathematicians to attend a joint US-French seminar on the topic of representation theory and harmonic analysis of p-adics group, to be held in Marseilles, France in June 1990. The US organizer is Dr. Phillip Kutzko, University of Iowa. The French organizer is Professor Guy Henniart, University of Paris XI. The representation theory and harmonic analysis of reductive p- adic groups has gained great significance over the past two decades, both because of its intrinsic interest to non-abelian harmonic analysts and because of its relationship to number theory and the study of automorphic forms through what has become to be known as the Langlands program. Work in this area has been marked in particular by close collaboration between US and French mathematicians. The proposed seminar will bring together leading US and French specialists and will focus on the following topics: 1) the admissable dual 2) Howe duality 3) local harmonic analysis with applications to the trace formula and 4) local factors. This seminar will provide a timely opportunity to review recent developments in this area and to further future cooperative research.